Funding to Support Student Attendees to Programming Language Design and Implementation (PLDI) 2010 Conference

This travel grant requests funds to support graduate student travel to the Symposium on Programming Language Design and Implementation (PLDI). This is a top conference in Computer Science for research and education in the core areas of Software and Hardware Foundations program. The funds enables students to hear the latest results in the field, meet established researchers, and build community with the next generation of researchers.